Heat Transfer During Thermal Acoustic Oscillations in Cryogenic Systems

Thermal acoustic oscillations in tubes inserted into cryogenic systems can often introduce large quantities of heat into these systems. Such unwanted heat leaks can seriously degrade long term storage of cryogenic fluids. Very little has been done to develop a theoretical analysis of the heat transfer process during these oscillations. The objective of the proposed research is to numerically analyze and stimulate thermal acoustic oscillations in cryogenic systems, particularly in liquid helium and hydrogen systems, predict the oscillation pressure amplitude, velocity and temperature profiles and finally, experimentally correlate the heat transfer associated with these oscillations.